Summer School on Iwasawa Theory

This project will support U.S. graduate students and speakers to
attend a summer school in modern number theory being held at McMaster
University from August 9-13, 2007. The goal of the conference is to
introduce interested graduate students to major lines of current
research in the field. Four speakers will deliver lecture series of
four hour-long talks each to the students. Select students will work
on projects designed by the speakers in groups during nightly working
sessions and give presentations of their work on the final evening.

The specific focus of the summer school is Iwasawa theory, an area in
which many exciting advances have been made very recently. The lecture
series will be delivered by four of the foremost researchers in
Iwasawa theory and will give graduate students to a strong and
carefully designed introduction to both fundamental aspects of the
subject and recent advances in the area. The summer school will train
a significant number of U.S. graduate students, providing an
important step in their development as research mathematicians.